XXIII International Symposium on Multiparticle Dynamics; Aspen, Colorado; September 12-17, 1993

9224765 Block This award is for partial support of junior investigators in particle physics to enable them to attend the twenty third in a series of symposia in September at Aspen, Colorado. These symposia are typically attended by approximately 125 physicists, and cover a wide range of topics. The last two symposia in the series have been in Santiago di Campostela, Spain (1992) and in Wuhan, China (1991). The topics to be covered in the symposium, planned for September 12-17, 1993, are of current interest to all particle physicists. ***